Rhizosphere Respiration and Root Demography in Forest Ecosystems

Cheng
9973995

Rhizosphere Respiration and root demography in forest ecosystems

The root influenced soil zone (rhizosphere) is one of the key components of the C cycle. The proposed research will significantly enhance our understanding of a critical element of the rhizosphere, its respiration, by (1) determining the rhizosphere respiration in a forest, (2) linking the forest rhizosphere respiration with the population structure of the roots and (3) developing a tree rhizosphere respiration model. The research will examine whether rhizosphere respiration is more sensitive than microbialrespiration to physical factors in the environment such as temperature. This work will, for the first time, separate soil root and microbial respiration making it possible to examine all major C fluxes belowground. An empirical model will be developed which will allow the creation of linkages between forest belowground C fluxes and the global C cycle.